Workshop on Real Time Data Analytics for Resilient Electric Grid. To Be Held in Portland, Oregon, August 4-5, 2018

Availability of data from massive sensors deployment enables novel data-driven monitoring and control strategies in the power grid with improved decision support for enhancing resiliency. This workshop will focus on identifying the problem with evolving smart grid complexity and the recent advancements in possible solutions to enable resiliency of the power grid, specifically focused on utilizing real-time data analytics. This workshop will have top expert in data analytics, cyber security, resiliency and electric grid operation from federal agencies, utilities, ISOs, vendors, and NSF awardee and underrepresented minority and women participants will be highly encouraged. Although the majority of the participants will be from the power and energy area, some selected experts from data science and analytics will be invited to participate in the workshop. This will allow the participants to learn about best practices in other areas to implement in power and energy systems. Strategies identified by the stakeholders at the workshop will result in exchange of ideas and educational content, in the preparation of a highly-trained workforce to manage the complex grid of the future. Research needs identified by the stakeholders will result in better investment by federal agencies and advancing the Nation towards the resilient electric grid.

The workshop will result in new strategies and ideas for data-science approaches to enable resiliency of the electric grid. Phasor measurement units (PMUs) provide real time situational awareness and decision support. Distribution automation and smart meters enables advanced volt-var control, real time load behavior tracking, outage management and transactive control. Enhanced visibility of low voltage distribution network enabled by data sensors may help energy producers and consumers to better manage their energy portfolio for resilient operation. Furthermore, an increasing number of digital devices and sensor data in this cyber-physical electric grid also need solutions for data anomalies and cyber-security management. One of the focus areas of this workshop is real time data analytics to enable resilient electric grid. Big data is generated and monitored ubiquitously in smart grids, but largely unexploited in discovering knowledge and new solutions for critical smart grid applications. Robust data analytics solutions are critical towards the optimized operation to enhance the resiliency of the smart grid. Hence this workshop will focus on real time data analytics to enhance situational awareness and decision support to enhance resiliency of the power grid. Results of the workshop will be disseminated through web for wider distribution.